Mathematical Sciences: Pacific Northwest Geometry Seminar

9404108 Lee The Pacific Northwest Geometry Seminar arranges and conducts a series of seminars and workshops at several institutions in the NW region of the United States as an important infrastructural activity. The topics covered include diverse areas of differential geometry, dynamical systems, mathematical physics and applications. The seminars are given by leading experts in these fields and are aimed mainly at faculty members, post- doctoral researchers and graduate students. ***